Evaluation Activities for University of Iowa I/UCRC

This award funds the first year of a three-year continuing award to study the university/industry interactions occurring in the University of Iowa's Industry/University Cooperative Research Center for Simulation and Design Optimization of Mechanical Systems. The evaluator performing this study has the background and experience to perform the necessary activities. The Program Manager recommends the University of Iowa be awarded $8,000 for the first year of a three-year continuing award.